Travel support for participation at the 6th Prague Summer School on Mathematical Statistical Physics

The Prague Summer School on Statistical Mechanics has traditionally been a meeting ground for students, postdocs and researchers working at the area between statistical mechanics and related mathematical disciplines. This year's school, planned for August 28-September 9, 2011, offers a list of very distinguished lectures and lecturers.
The main program will consist of five minicourses with the following (confirmed) speakers and (tentative) titles:
Michael Aizenman (Princeton) and Simone Warzel (Munich): Quantum spectra and dynamics under random potential
Benjamin Schlein (Bonn): Spectral properties of Wigner matrices
Herbert Spohn (Munich): Growth processes, directed polymers, and the 1D Kardar-Parisi-Zhang equation
Daniel Ueltschi (Warwick): Quantum Heisenberg models and their probabilistic representations
Balint Toth (Budapest): Scaling limits of self-interacting walks and diffusions with long memory
The topic of this year's Tutorial Program is probability theory and mass transportation. The leader of the Tutorial Program is:
Theodor Sturm (Bonn University)

The support is requested for 10 US graduate students.